Equipment for Polymer Synthesis

This grant provides funds for the acquisition of equipment needed in Professor Tour's research dealing with synthesis and characterization of polymers with interesting electrical and optical properties.